Qualitative Properties of Solutions to Second Order Elliptic and Parabolic Differential Equations

The project deals with properties of solutions to elliptic and
parabolic equations of second order, such as estimates for Green's
functions and harmonic or caloric measures, uniqueness of blowup solutions
to semilinear elliptic equations, regularity of solutions to quasilinear
and nonlinear equations under weak structural assumptions. Part 1 of the
project is devoted to the behavior of solutions near the boundary. Special
attention is paid to the conditions on the coefficients, which guarantee
the absolute continuity of harmonic and caloric measures with respect to
the surface measure on the boundary. Such Dini-type conditions are known
for equations in the divergence form. The study of equations in the
non-divergence form needs quite different technique. Part 1 also includes
the problem of uniqueness of solutions to semilinear equations, which blow
up on the boundary. Our recent results show that positive solutions, which
vanish on the boundary, have same rate of decay. We expect blowup solution
near a portion of the boundary must have same rate of growth. Part 2 of the
project deals with the regularity of solutions of quasilinear equations
with minimal smoothness with respect to the gradient of solution, and of
fully nonlinear equations without the concavity conditions with respect to
the second derivatives.

An essential part of the project deals with boundary properties
of solutions of partial differential equations with non-smooth
coefficients. Such equations appear in the investigation of different
processes in composite materials, porous media, chemistry, biology, etc.
The boundary properties of solutions are especially important, because they
are "responsible" for interaction of a given object with its environment
(heat emission, radiation, etc). In many situations, in order to get a
desirable effect in a given region, one can only act on its boundary. The
study of behavior of solutions near the boundary allows us to make such
boundary control more predictable and effective. The blowup solutions of
semilinear equations are associated with certain processes in biology,
medicine, nuclear engineering, where their control cannot be overestimated.
In this project, we also discuss the regularity of solutions of nonlinear
equations. Positive results of such sort are interesting not only from the
theoretical point of view, they also give the background for numerical
solution of equations.